2002 Thin Film Mechanical Behavior Gordon Research Conference

0209935
Cook
Partial support is provided for the 2002 biannual Gordon Research Conference on Thin Film Mechanical Behavior. The conference will be held July 14-19 at Colby College in Waterville, Maine. Session topics include global and local film behavior, stress effects, time dependent behavior, adhesion, contact mechanics, electromigration, and magnetic and electrical effects. The Gordon Conference format will assure that cutting edge research is discussed extensively in an informal atmosphere. NSF support will be used primarily to support the attendance of graduate students and junior researchers. The outcomes of the conference will be advances in basic science and follow-on impact on industrial applications in this critical area as results transfer to industry.
***